Conference: NSF Workshop on Security Challenges and Research Directions for Space and Non-Terrestrial Networks

This workshop identifies critical research gaps and develops a research agenda to advance the cybersecurity of space and non-terrestrial networks. As these networks become increasingly important to global communications and critical infrastructure, their reliance on long-range wireless links and broad signal coverage exposes them to sophisticated cyber and radio-frequency attacks. The workshop convenes researchers from academia, industry, and government, together with junior faculty and students, to foster interdisciplinary collaboration and accelerate the development of innovative cybersecurity solutions. Participants examine the policy, regulatory, and standards implications of securing non-terrestrial networks, including quantum-resistant cryptography, secure cellular access protocols and architectures, and governance frameworks that enable secure, interoperable, and resilient communication systems and infrastructures. The workshop produces a research roadmap, identifies high-impact priorities, and establishes a multidisciplinary community dedicated to securing next-generation space and non-terrestrial network architectures.

The workshop examines security challenges across the physical, network, and application layers of future non-terrestrial networks. Participants address threats to the air interface, malicious or compromised space assets, attacks on terrestrial and space-based infrastructure, and emerging risks from quantum computing and artificial intelligence attacks. The workshop also explores opportunities to use quantum-resistant encryption, trustworthy artificial intelligence, and resilient system architectures to strengthen security while addressing challenges in data protection, privacy, identity management, and trust. Through expert panels, lightning talks, and focused breakout sessions, participants identify pressing research challenges, evaluate promising technical approaches, and prioritize research directions that guide future investments in secure, resilient, and interoperable space communication systems.